CONAcYT: Texas A&M University - UNAM Two-Way Video Infrastructure

This project proposes to develop an application delivery system, in collaboration with the Universidad Nacional Autonoma de Mexico (UNAM), which will provide real-time distance learning opportunities. This system will be created by:

(1) Establishing a high-speed, high-bandwidth Internet2 gateway at the Texas A&M University (TAMU) Center at UNAM
(2) Connecting the Texas A&M University Virtual Networking Lab to the gateway
(3) Linking distance learning studios at Texas A&M University and UNAM

The user population for the project is as diverse as the institution's populations and includes:

(1) Texas A&M University Educational Broadcasting Services
(2) Texas A&M University Architecture Study Abroad students and faculty
(3) Texas A&M University Latin American Study Program
(4) Texas A&M University Chemistry Department
(5) DGSCA-UNAM
(6) Mexican students in U.S. continuing education programs
(7) Mexican networking students and personnel needing hands-on continuing networking education.